A Scalable Middleware for Data Reconciliation in PDAs and Mobile Networks

This research project focuses on scalable reconciliation methods that enable ubiquitous information sharing in a networked mobile environment. It develops, applies, and experiment with the most recent advances in information and coding theory and computational methods relevant to data reconciliation. The proposed approach entails addressing the problem from three related perspectives: peer-to-peer reconciliation, network-wide reconciliation, and, usage modeling. The latter specifically aims at investigating and modeling practical usage of mobile devices in order to tune reconciliation parameters. The comprehensive approach to the issues of data reconciliation promises to impact a large number of individuals and corporations who use PDAs and other portable devices for maintaining personal and work data. In addition, the results of this research will be applicable to a wide variety of networking areas, including improving of the efficiency of content delivery in general networking architectures, minimizing the overhead of ad-hoc routing protocols, and reducing the delay of gossip protocols.